A Detailed Chemical and Isotopic Investigation of Mesozoic Atlantic MORB

>A DETAILED CHEMICAL AND ISOTOPIC INVESTIGATION OF >MESOZOIC ATLANTIC MORB (NSF OCE96-17676) > > This is a proposal to conduct a detailed chemical and Sr, Nd and Pb >isotopic investigation of Mesozoic MORB from the central and North >Atlantic. Basalts from most of these drill sites have not been investigated in >detail before, and samples from only two drill sites have any isotopic >data. The objective of the project is to expand our current investigation >of the effects of global mid-Cretaceous plume magmatism on the composition >of the oceanic upper mantle. Data for Mesozoic Pacific MORB suggest that >the Pacific upper mantle underwent rapid and widespread enrichment in >highly incompatible elements and radiogenic Sr soon after the initiation of >effusive plateau- and seamount-building volcanism in the mid-Cretaceous >around 120 Ma. We wish to constrain the magnitude and geographic extent of >this upper mantle enrichment "pulse", as it will provide critical >information on the nature of the widespread Cretaceous intraplate >volcanism, and will allow us to test models relating the origin of the >volcanic event to interactions at the core-lower mantle or lower >mantle-upper mantle boundaries. >